Conference on: Molecular Biology of Signal Transduction in Plants at the Cold Spring Harbor Laboratory, Cold Spring Harbor, NY; October 2-6, 1991

This meeting on Molecular Biology of Signal Transduction in Plants will be an open international meeting devoted to fundamental research on different aspects of this field, with emphasis on molecular and genetic approaches. The development of a higher plant is regulated by a multitude of signals from within and without, that evoke both generalized and specific biological responses. Therefore an understanding of signal transduction in plants is vital to understanding plant development. The need for a meeting on this subject is evidenced by the rapid advances in this field during the last few years, in areas that range from environmental receptors to transcription factors. This meeting will allow presentation of recent results and methodologies in these different aspects of the field within a common framework, in an atmosphere of face to face contact. The areas to be covered by the meeting are 1) Environmental Receptors, 2) Hormone Receptors 3) Cell-Cell Recognition 4) G-proteins and Protein Kinases 4) Transcription Factors, 5) Mutants in Signalling Pathways 6) Transgenic Approaches. This international conference will promote further research and the synthesis of ideas in the rapidly moving field of cellular signal transduction in plants.